Investigations of Behavior in Strategic Environments with Unique Mixed Strategy Solutions

Evolutionary models of dynamics have been a source of robust explanations of individual behavior in experiments and in the development of social norms. This project synthesizes these two applications as experiments are conducted on populations of individuals who choose between idiosyncratic and aggregate gambles. This research is based upon the work of Arthur Robson which shows that there are systematic biases in the evolutionary dynamics toward the selection of idiosyncratic gambles. If these models prove to be empirically robust, then we can confidently apply these evolutionary models to topics such as understanding how markets for risky assets have developed.